An Industry/University Cooperative Research Center for Advanced Electron Devices and Systems

This supplement funds the second year of a three-year continuing award under the "Self-Sufficient Partnership for Research" Program at the University of Texas, Arlington Industry/University Cooperative Research Center for Advanced Electron Devices and Systems. The Center continues to meet the renewal criteria requirements of the Industry/University Cooperative Research Centers Program. The Program Manager recommends the University of Texas, Arlington be awarded $50,000 for the second year of three-year continuing award.